RUI: Novel Fiber Optic Sensors and Devices Employing Curved Fibers and Fiber Bragg Gratings

Proposal Number: ECS-9800030 Principal Investigator: Keith Wanser Title: Novel fiber optic sensors and devices employing curved fibers and fiber Bragg gratings Abstract The proposed research is to investigate experimentally and theoretically novel fiber sensor and device configurations utilizing curvature effects in optical fibers and optical fiber Bragg gratings. The investigation involves interferometric measurement of the bending induced phase shift and amplitude transmittance of the single mode fiber shaped in Elastica configuration, measurement of the optical-longitudinal strain relationship in a chirped Bragg grating to verify the theoretical prediction of 3 orders of magnitude enhancement of the strain effect over the ordinary optical fiber, and the amplitude and phase effect associated with highly curved Bragg gratings.